"Biosensors: Past Achievements, Present Progress and FutureChallenges"

This is a proposal to fund a MiniSymposium on "Biosensors: Past Achievements, Present Progress and Future Challenges". The MiniSymposium will be part of the November 1-4, 1990, Philadelphia meeting of the IEEE/EMBS. This meeting is the largest single yearly conference in biomedical engineering. The request is for travel and subsistence expenses for seven prominent speakers.